Acquisition of Massively Parallel Processor for Scientific Computing Applications and Computer Science Engineering.

This award is for the acquisition of infrastructure to support computational science and engineering at the University of Michigan. The infrastructure to be acquired consists of two parallel computers and a loosely coupled high speed network of high performance workstations. The areas of research supported by this infrastructure include automotive design, computational fluid dynamics, space plasma physics, computational particle transport, parallel CAD tools, parallel algorithms and architectures, and a parallel computing environment. These high performance computers will support both computational science and engineering (CS&E) and studies into more effective use of parallelism. CS&E is a third research paradigm complementing experimentation and theory. The acquisition of this computational facility will allow users to explore the interactions between CS&E and both experiments and theoretical predictions. The use of computation in conjunction with experimentation allows much more rapid prototyping that in turn results in more useful endproducts, be they science or manufactured products.